U.S.-Australia Cooperative Research: Lower Cambrian Environmental Stratigraphy and the Fossil Record of the Metazoan Radiation Event

This award will enable Dr. Jeffrey F. Mount from the University of California, Davis to collaborate with Dr. Chris C. von der Borch of Flinders University, Australia over a period of two years. They will study rock and fossil records from the base of the Cambrian System in the Adelaide region of South Australia. The project will entail: (1) evaluation of unpublished literature and the available fossil collections from the area; (2) field collection of rock and fossil data from three localities within the Adelaide region; and (3) laboratory analysis of stratigraphic sections. The purpose of analyzing the fossil/rock associations in South Australia is to evaluate the paleoenvironmental context of earliest Cambrian fauna and to determine how the history of shelf sedimentation has controlled the fossil record of the unprecedented appearance and diversification of organisms during that era. Stratigraphic analysis will be expedited because of the substantial amount of basic descriptive work which has already been carried out for the study sites. The respective expertise of Drs. Mount and von der Borch on the paleogeography of the Lower Cambrian strata of the southwestern Great Basin, U.S.A. and the Adelaide region of South Australia will enable a valuable comparative analysis of equivalent faunal records from these two continents.